Generalized Cloud Overlap in the NCAR Community Climate Model

Abstract
ATM-9903908
Bergman, John
University of Colorado
Title: Generalized Cloud Overlap in the NCAR Community Climate Model

The proposed work will investigate cloud overlap in the National Center for Atmospheric Research Community Climate Model (NCAR CCM). The plan is (i) to incorporate the modified radiative transfer model into the CCM; (ii) to test the sensitivity of climate as simulated by the CCM to changes in a length scale, L (related to the cloud overlap for two model levels); and (iii) to optimize the climate simulation with respect to L. This will provide values of L that are most consistent with other physical parameterizations in the CCM. The work is important because it will lead to better understanding and modeling of cloud overlap.